Experimental Nuclear Chemistry in the Undergraduate Curriculum

Equipment needed to implement a course in nuclear chemistry has been recently acquired by the Chemistry Department at James Madison University. An alpha spectrometer, a gamma spectrometer, and an analyser system were among the items included. The availability of this system provides chemistry majors (and minors), pre-medical, and pre-engineering students with training in modern nuclear measuring techniques involving pulse height measurements for alpha and gamma particle spectrometry. Along with teaching basic concepts, the use of nuclear counting equipment for neutron activation analysis, environmental monitoring, medical applications and selected applications of technical and social merit is included.